Studies on Hemolymph Ice Nucleator Involved in Insect Cold Tolerance

Ice nucleators, which initiate ice formation at temperatures above those at which ice formation would normally occur, have become important research topics in a wide range of scientific disciplines ranging from atmospheric science to agriculture (crop damage resulting from ice nucleating bacteria) to cryopreservation. We have studied the biology and biochemistry of blood proteins with ice nucleator activity that are important components of the ability of certain insects to survive the freezing of their body fluids. It has been postulated that the nucleators cause ice formation in the blood prior to ice formation in the tissue thereby facilitating formation of a supercooled state within the cells and a prevention of ice crystal formation in the cells. This project continues those studies and is particularly concerned with blood lipoproteins produced by freeze tolerant larvae of the cranefly Tipula trivittata. The major research effort focuses on what makes this lipoprotein an ice nucleator. The lipoprotein is quite interesting because of certain similarities in composition with the bacterial ice nucleator which is involved in serious freeze related damage to certain agricultural crops. Overall, the results should increase our understanding of the regulation of cold-hardiness and freeze tolerance in insects.